Melting

The request is for computer hardware to permit extension of the work to simple liquid structure and melting in three dimensions. The equipment will allow one to carry out a wide variety of simulation studies, including realistic molecular-dynamics simulations of atomic and molecular systems and Monte Carlo simulations of simple melting models. He believes that the results could pave the way for the first true understanding of melting and liquid structure and of complex melted phases such as molecular liquids, liquid crystals and polymers.